International Research Experiences for Minority Students

Hartshorn
0123915
This Americas Program proposal requests support to Dr. Gary S. Hartshorn of Duke University for sponsorship of eight undergraduate students to participate in a research-oriented tropical biology program in Costa Rica.

The goal of this project, to be conducted in collaboration with the Organization of Tropical Studies in Costa Rica, is to provide field oriented research opportunities for the students. Costa Rica's richness of ecosystems and biodiversity will provide the students with a rich research experience in tropical biology, and lead them to a greater understanding of the ecology and biodiversity of this world resource.
This project will also help to develop well-trained researchers, capable of working in an international setting. ***